Engineering Research Equipment Grant: A Head Mounted, Binocular Eye Movement Measurement System

This is a request to purchase a System 7000 video-based imaging instrument. This head mounted instrument is used to measure the movement of both eyes noninvasively. The instrument will be used to characterize eye movement capabilities of individuals with cerebral palsy, and to determine whether eye movements might be used as a control signal by severely diseased individuals. The project may provide a new technological tool for interacting with severely diseased cerebral palsied individuals who have no other reliable means of communication. In addition, the device will be used extensively in projects involving undergraduates, providing the students with a unique opportunity to be involved in meaningful cross-disciplinary research early in their careers.